Enhancement of Mathematics Instruction Using Classroom Computers

This project will support the purchase of computer- projection equipment which will be used for classroom demonstrations. It is being funded under the Instrumentation and Laboratory Improvement (ILI) Program, which has the goal of improving the quality of the undergraduate curriculum by supporting projects to develop new or improved instrument-based undergraduate laboratory and/or field courses in science, mathematics, or engineering. In particular, the main objectives of this project are curricular innovation and delivery in calculus and undergraduate numerical analysis courses. Three groups of courses will be affected: (1) a twelve-hour, three- semester calculus sequence for mathematics, engineering, and physical science majors, (2) a six-hour, two-semester calculus sequence for business administration and social science majors, and (3) a one-semester numerical methods course required of all engineering freshmen. Software (with an emphasis on graphics) especially developed for classroom demonstrations will be used.